Laboratory Testing of Asphalt Concrete Materials to Predict Permanent Deformation Response Characteristics

This project will investigate three areas of research to study the permanent deformation of asphalt concrete. These areas are: (a) effect of vehicle loads on stress conditions in asphalt concrete material; (b) effect of various proportions of mix on physical and chemical properties of asphalt concrete; (c) Conducting laboratory experiments to be able to predict permanent deformation of asphalt concrete materials.